Three-Body Recombination at Cryogenic and Ultracold Energies

Theoretical and computational techniques are developed and applied to recombination of ultra-cold alkali atoms and to anti-hydrogen. The theory is important for understanding recent experiments in Bose-Einstein condensation and for trapping experiments to be performed at CERN in the near future.